RIA: Depth-First Search as a Divide-and-Conquer Tool

A separator of a graph is a set of vertices whose removal breaks the graph into small pieces. A cycle separator is a simple cycle whose vertices form a separator. Finding separators is an essential part of divide-and-conquer strategies for many graph-theoretic applications. The PI has recently discovered that, surprisingly, every graph has a cycle separator and such a cycle separator can be efficiently computed by depth-first search in sequential and parallel computations. Consequently, depth-first search now assumes a new role as a divide- and-conquer tool. This linkage between cycle separators and depth- first search has never been available before, and promises to bring about unconventional applications of depth-first search. This project is intended to explore new possibilities opened up by the search- separator linkage.